NSF Young Investigator

An NYI award will support research on the deposition and properties of thin films for tribological applications. Ion enhanced physical vapor deposition using unbalanced magnetrons to improve plasma confinement will be used to deposit hard coatings, such as various metal nitride, carbide and oxide compositions, as well as superlattice and nanophase materials. Deposition mechanisms will be studied and the mechanical, tribological and other relevant properties of the coatings will be evaluated and related to microstructure and processing parameters.